Situated Conceptualization

The ability to conceptualize objects, events, and states is central to human
cognition. When people plan and make decisions, they conceptualize future
events; when people recall a previous experience, they conceptualize past
events; when people understand language, they conceptualize the meaning of a
speaker's utterance. Theories of knowledge often assume that when people
conceptualize something, they conceptualization it an isolated abstract
manner. Thus, when people conceptualize a chair, they conceptualize it as
an isolated and abstract object; or when people conceptualize a purchase, they
conceptualize it as an unsituated abstract event. The proposed research aims
instead to demonstrate that conceptualizations are situated, first, in a
physical environment, and second, with respect to the perceiver's cognitive
perspective. Thus, when people conceptualize a chair, they situate it in a
particular setting (e.g., a kitchen), and they adopt a cognitive perspective
toward it (e.g., standing on it to change a light bulb). Besides including
settings and cognitive perspectives, situated conceptualizations represent
focal entities in a context-appropriate manner. When people conceptualize a
chair in a specific situation, they don't represent the chair abstractly,
instead they represent a specific type of chair appropriate for that situation
(e.g., a kitchen chair in a kitchen). Three lines of research examine whether
conceptualizations are situated. The first uses the property generation and
property verification tasks to establish situational content in
conceptualizations. The second uses the false memory task to demonstrate that
learned material is typically situated, and that the situations inferred at
encoding later produce reconstructive memory errors at retrieval. The third
assesses the hypothesis that abstract concepts, such as truth and freedom,
depend critically on their meanings for situationswithout situations these
concepts are difficult to understand. This research is highly relevant to
applications in education and training. Should it demonstrate that
conceptualizations are situated, it would motivate instructional methods that
situate learned material. Rather than trying to instill abstract non-situated
concepts in students and trainees, instilling situated conceptualizations may
prove much more effective. The proposed research has much potential for
supporting and informing these efforts.